Acquisition of a Particle Image Velocimetry System

CTS-0114109
Jean Hertzberg, University of Colorado

In this proposal, funding is requested to purchase a Particle Image Velocimetry (PIV) system to enhance the research capabilities of the PI and four Co-PI's. They are actively engaged in a number of interesting research problems in fluid mechanics. These include real time simulation and control of a two-dimensional jet, evaluation of micro-electro-mechanical systems (MEMS) fluidic devices, cardiovascular fluid dynamics, and infectious aerosol generation.